A Symposium on Combinatorial Search

The project is the second in an international symposium series on the topic of combinatorial search. Currently, work in this area appears scattered across many conferences in several fields. The intellectual merit of this project stems from the sharing of new results, ideas, and problems across the many areas in AI and robotics where combinatorial search is used. Broad impact comes not only from this intermixing but from having a single locus of activity for efforts in combinatorial search, one that we expect to become known in the wider community as the place to look when one wants a snapshot of the latest developments in the area. The first symposium will be held as a AAAI workshop in 2008. This second meeting in the series is held just before and in the vicinity of the International Joint Conference for Artificial Intelligence in 2009. NSF funding supports authors of oral and poster presentations, as well as invited speakers.